Social Aspects of Digital Libraries

IRI-9528808 Borgman, Christine University of California $35,992 - 12 mos Social Aspects of Digital Libraries The Digital Libraries research has brought together researchers from computer science, communications, library and information science, psychology, linguistics, and from the disciplines in which digital libraries are being created, including the sciences, social sciences, arts, and humanities. Digital Libraries are a prime example of large societal problems that bring human & technological resources to bear on their solutions. Many social aspects of digital libraries need to be addressed, as we come to undertand the full range of issues they encompass. This research workshop will focus on two social problems that are urgent in developing the National and Global Information Infrastructures: Information Needs: Identifying real information needs and developing digital libraries to mee those needs. End User Searching And Filtering: Designing digital libraries in which it is possible to find the right information in a glut of information. These two problems have been chosen because they are urgent, enough research exists to frame them but not enough to solve them, and the work on these problems is scattered across multiple disciplines that need to be brought to form a research community.